Structural Organization of Proteins on the Oxidizing Side of Photosystem II

This project describes the production and preliminary characterization of mutants bearing lesions in the extrinsic loop region of CPal in the cyanobacterium Synechocystis 6803. CPal (encoded by the psbB gene) is an intrinsic membrane protein which is an integral component of the photosynthetic apparatus of cyanobacteria and higher plants and appears to be required for photosynthetic oxygen evolution in Photosystem II. The goal of this project is to determine the function of the large and unusual extrinsic loop region of this protein. This region appears to interact with the extrinsic 33 kDa protein and possibly the inorganic cofactors manganese, chloride, or calcium, of all of which are required for oxygen evolution. Additionally, CPal appears to act as a chlorophyll-a antenna for Photosystem II. The extrinsic loop region may interact with other antennae proteins and/or the Photosystem II reaction center. In vitro mutagenesis (saturation and oligonucleotide-mediated site- directed) will be used to produce mutations in the extrinsic loop region. These mutations will be re-introduced into Synechocystis (along with a closely linked antibiotic resistance marker), and mutants will be isolated by a combination of screening for antibiotic resistance and loss of photoautotrophic growth. Additionally, screening for antibiotic resistance and loss of photoautotrophic growth. Additionally, screening for temperature sensitive mutations will be performed. These mutations will then be characterized by examination of their electron transport activity 77oK fluorescence emission spectra, manganese and calcium content of Photosystem II-enriched preparations, photosynthetic membrane protein composition, and their chloride requirements for the stabilization of manganese.